Experiments on Weak Interactions in Nuclear Physics

The goal of the proposed research it to produce a source of oxygen
14, a radioactive isotope of oxygen having a half-life of 70 seconds.
If this development project is successful, the source will be used in a
future experiment designed to test one of the fundamental aspects of the
unified theory of the weak and electromagnetic interactions. To perform
this experiment the source must have an activity of at least 100,000
decays per second, and for technical reasons must be deposited on a very thin
foil in an area of no more than a few square millimeters. The weak
interaction experiment which we hope to carry out later will test what is
referred to as the Conserved Vector Current Hypothesis, and will involve
measuring the energy spectrum of the positrons emitted in the decay of oxygen
14.